Creating Lasting Links

Lesley College initially requested support for a two-year project to be an extension and elaboration of its current project, Creating Communities of Inquiry. The three central activities of the project are: (1) providing the opportunity for 80 elementary school teachers per year in the Boston and Cambridge, Massachusetts to "shadow" practicing scientists in the private sector for 90 hours, following which they will jointly develop a science activity for the classroom; (2) establishing electronic networks that will permit electronic mail communication among the teachers' classrooms, industry scientists' laboratories, and possibly college and university laboratories; (3) conducting bimonthly teleconference among the teachers and their mentors to share experiences and ideas. In the course of negotiations the project's duration became 4 years, the number of teachers affected became 160, and the private sector's contributions more than doubled.